CAREER: Towards Estimating Requirements Coverage: Managing Scenarios and Goals in Requirements Evolution

Proposal Number: CCR-9983926

TITLE: CAREER: Towards Estimating Requirements Coverage:
Managing Scenarios and Goals During Requirements Evolution

PI: Ana (Annie) I. Anton

The career development planned outlined in this proposal focuses on the
principal investigator's efforts to integrate core research and educational
objectives. The research addresses important issues in the discovery,
elaboration and management of system use scenarios for the specification of
software requirements. The ultimate goal is to develop viable solutions
for supporting the early stages of the software lifecycle by ensuring
requirements coverage. The objective is to produce a framework, and
web-based tool support, to enable the evaluation of requirements activities
and processes during scenario management and evolution as well as
requirements coverage estimation. The web-based tool will serve as an
experimental research engine, collecting data on requirements engineering
activities in a series of projects for real clients in various domains,
sites and project teams.

The educational component is closely related to the research plan.
Students, at the undergraduate and graduate level, as well as industrial
participants, will use the software produced during the research
activities. The results of this research are expected to improve the
outcome of projects that employ goal and scenario-based approaches during
requirements specification. A library of projects in various domains will
lead to new materials such as techniques, methods and cases for software
engineering education.